SCC-CIVIC-FA Track B Convergence, Inventory, Matching, and Assignment (CIMA) to Optimize Post-event Housing Repair for Displaced Vulnerable Populations

Severe weather events have the potential to inflict wide-spread structural damage to homes, resulting in population displacement. Displaced households suffer enormously. The length of time between initial displacement and returning, once again, to stable housing varies greatly across populations, with low-to-moderate income households and medically fragile households tending to have lengthy displacements. Following an event, volunteer labor and donated materials flow into the impacted region. However, the matching of supply (donated materials and volunteer labor) with the need for repair among particularly vulnerable households is less than optimal. It is essential to more-optimally match supply with the need so that lengthy displacement times common among vulnerable households will be meaningfully reduced, thus addressing fundamental inequities in recovery and wellbeing. This project will develop, pilot, and field the Convergence, Inventory, Matching, and Assignment (CIMA) platform to provide this needed capability. CIMA, when used by nonprofit recovery organizations, will increase efficiency in matching supply with need and promises to meaningfully decrease displacement times among vulnerable households. The project will have multiple societal impacts. It will (a) lessen disparities in displacement times and, by extension, lessen longer-term disparities in health and wellbeing; (b) advance equity and justice issues in recovery; (c) partner with underserved communities; and (d) support the training of graduate students inclusive of racial and ethnic minorities and females.

This project will progress through high-level conceptual, implementation, and execution stages. More precisely, the CIMA architecture is a decentralized, stateless system conforming with Representational State Transfer (REST) in the creation of the underlying client/server protocols and Application Programmer Interfaces (APIs). The CIMA development and fielding processes shall (a) advance research in optimization and scheduling algorithms; (b) improve user experience interfaces consistent with user needs and expectations; (c) perform internal and external validation; and (d) stress test CIMA against common storm assumptions as well as outlier scenarios.

This project is part of the joint CIVIC Innovation Challenge program which includes Department of Energy Vehicle Technology Office, Department of Homeland Security Science and Technology Directorate, Federal Emergency Management Agency, and the National Science Foundation.